Travel Funds for the SOLERS22 1991 Workshop

This conference is concerned with the variable solar output in the UV, visible, and soft x-ray radiation bands. It will occur in Boulder, Colorado, from June 3-7, 1991.